Optimization: Theory, Algorithms, and Applications

0203175
Burke

In this research we develop theoretical and numerical tools for
understanding and exploiting the variational behavior of spectral
functions. Briefly, spectral functions are mappings of the spectrum
of real or complex valued matrices to the real numbers. Two
examples are the spectral abscissa (the maximum real part of the
spectrum) and the spectral radius (the maximum modulus of the
spectrum). The spectral abscissa and the spectral radius play an
important role in understanding the asymptotic behavior of
continuous and discrete dynamical systems, respectively. For this
reason, understanding their variational behavior will greatly impact
a number of application areas. In general, spectral functions have a
number of features that make them difficult to analyze. Foremost
among these is that they are typically nondifferentiable, indeed
non-Lipschitzian. These functions can be very poorly behaved
especially in regions of interest for optimization. Thus, even
though these functions have a classical history in mathematics,
science, and engineering, intimate knowledge of their variational
behavior has proven elusive. For this reason, new tools of analysis
in conjunction with classical techniques are required. In this
research we bring together the modern techniques of variational
analysis and classical methods of Puiseux-Newton series, semi-
algebraic sets, conformal mappings, and the geometry of
polynomials. These tools have proven to be phenomenally
successful in shedding new light on this very important class of
functions.

In optimization theory and practice one tries to either minimize or
maximize a performance measure subject to limitations on how the
performance measure can be adjusted. Optimization is a
fundamentally interdisciplinary area of research having a
significant impact on a wide range of academic, industrial, and
government research activities. Research in optimization requires
theoretical advances, the development of numerical solution
methods, and a firm grounding in applications. The particular
research outlined in this proposal focuses on optimization
problems that are closely related to the stability properties of
systems that evolve with time. In particular, it impacts the design
of structures such as buildings and aircraft that are subject to
temporal deformations from environmental factors such as an
earthquake or a wind-shear. The underlying optimization problem
in this context is to make the structure as stable as possible in a
potentially hostile environment while satisfying certain design
limitations on such things as weight, size, and cost. The great
difficulty in this research is that the performance measures under
consideration, such as stability, do not vary in a smooth manner as
the underlying parameters vary. Consequently fundamentally new
methods of analysis are required to understand the variational
behavior of these performance measures. Indeed, the mathematical
tools necessary for this kind of analysis have only very recently
been developed. In this research we intend to make significant
inroads into the analysis of these kinds of problems and to develop
a range of numerical methods that can be used to solve them.